Local and Global Behavior of Solutions of Schrodinger Equations

Abstract Kapitanski 9623520 The work under the proposed project will focus on the analysis of the properties of solutions for both nonlinear and linear Schrodinger equations. The principal investigator will study the uniqueness of the global weak solutions of the Cauchy problem for a semilinear Schrodinger equation with critical Sobolev exponent. He will also study the basic questions of global existence, uniqueness and persistence for solutions in more general situations: in the case of a curved metric, in the presence of a magnetic field and/or a confining or singular potential. Such generalizations pose nontrivial problems concerning space-time integrability properties and formation of singularities for solutions of the corresponding linear Schrodinger equations. The analysis of these linear problems is a part of the proposed project. In comparison with the parabolic and hyperbolic equations, the equations of Schrodinger type are much harder to work with because of the lack of local estimates. The investigator has developed techniques based on microlocal constructions and weighted estimates, that will allow him to get around this difficulty in the analysis of solutions of linear and nonlinear Schrodinger equations. The Schrodinger equation is one of the basic equations of mathematical physics. It provides the mathematical foundation to nonrelativistic quantum mechanics, which is the source of much of our understanding of the structure of matter. In a rich variety of circumstances the models based on the Schrodinger equation and its nonlinear generalizations give the correct description of the physical reality. From the mathematical point of view, the Schrodinger equation is an unfailing source of deep and challenging problems. The proposed investigation, aiming at the analysis of the basic properties of solutions of linear and nonlinear Schrodinger equations, has direct bearing on some of the fundamental issues facing researchers in partial differential equations and harm onic analysis.